Mathematical Sciences: Mathematical Models in Cell and Development Biology

This project involves various studies on developing analytical models for cellular and developmental processes in biology. The main goal of this research is to explain pattern formation in developing cell populations as mechanical-chemical phenomena that can subsequently be formulated as mathematical models involving partial differential equations and finite difference equations. In earlier work of this type the investigator relied on the linear stability analysis. He now proposes to use nonlinear reaction-diffusion type models, and plans to use computation and simulation. The questions that will be addressed include: 1. What are the mechanochemical mechanisms underlying epithelial folding during embryogenesis? 2. How are spatial patterns of mesenchymal cell aggregation established? 3. What is the mechanochemical mechanism underlying cell motion? 4. How are the patterns on mollusk shells and butterfly wings laid down? The project falls in the general broad area of mathematical modeling of biological phenomena and as such is of interdisciplinary nature. The tools used is this research include laboratory experiments, mathematical analysis and computing. The investigator is a well established respected senior researcher with an outstanding track record.